Study of Cross-Phase Modulation in Optical Fibers

The proposed research is related to an experimental and theoretical study of the effects of cross-phase modulation (XPM) in optical fibers and how such effects can be used for influencing the behavior of one optical pulse by copropagating it together with another ultrashort pulse. The project is divided into three parts. The first part is concerned with the XPM interaction between the pump pulse and the Stokes pulse that is generated internally through the process of stimulated Raman scattering. The second part is related to the XPM interaction between the pump and signal pulses launched simultaneously at the fiber input. The pump and signal pulses are allowed to have different carrier wavelengths, different pulse widths, and a relative time delay between them. The third part is related to the XPM interaction when the pump and signal pulses have the same carrier wavelength but excite the orthogonally polarized modes of a single-mode fiber. The objective is to study how the XPM interaction can be used to modify the propagation characteristics of a signal pulse (such as its phase, frequency, shape, or spectrum) through an intense pump pulse. The study is useful for many engineering applications in the fields of photonic switching and high- speed optical communications.